NSF Graduate Fellowships in Support of a Program to Prepare Minority Graduate Students for a Career in Engineering Education

A program to prepare minority graduate students for a career in engineering education has been designed by the Faculty of the Watson School, SUNY-Binghamton, in conjunction with the engineering Faculty of Morgan State University, a historically black university in Baltimore. The program, called The Partnership, features early identification of academically talented engineering students at Morgan State, and provides academic advising and support to smooth the transition to graduate school at SUNY-Binghamton, financial support through the NSF Graduate Engineering Education Fellowship for the first three years of graduate study, and specific training and encouragement for an academic career. The Watson School and Morgan State are uniquely suited to develop a successful collaborative program. Both are relatively small, young programs with a strong commitment to minority engineering education, links with industry and active support for minority education from the state governments. Both have faculty members who are active in engineering education societies. They have already established a faculty seminar exchange.